Mathematical Studies of Transport and Exchange in Microcirculatory Physiology

The objective of this research is to develop a mathematical theory to describe the exchange of substances across the walls of blood capillaries and the movement of these substances through the surrounding tissue. The purpose of the circulatory system is to transport oxygen and nutrients to every cell of the body and to remove carbon dioxide and waste products that the cells produce. Such substances cross the capillary wall by fairly well understood physical processes, and they move through the surrounding tissue either from the blood to the cells or from the cells to the blood by a variety of different transport mechanisms. In addition, there is a large movement of water across the capillary walls from the blood into the tissue or from the tissue into the blood; such fluid movement is critically related to fluid balance and swelling within the body. The objective of this proposal is to mathematically describe these complex processes in terms of the underlying basic physical principles. A predictive theory will be developed to indicate how the body functions under a broad range of normal and pathological conditions. Such a theory will provide deeper understanding of the underlying physiology. In addition, because it is predictive, it will provide information that supplements and extends experimental techniques, and will lead to a decreased need for relying exclusively on animal experimentation for physiological research.